US - USSR Seminar on Precambrian Geology, the Southern Canadian Shield, and the Eastern Baltic Shield (Duluth, MN:August 1990)

The geology of the southern Canadian Shield is remarkably similar to that of the eastern Baltic Shield in many aspects, including rock types, rock ages, and tectonic histories. It is possible that the two shields were at one time in proximity to each other and may even have been located on the same supercontinent. Whereas papers from Swedish and Finnish geologists on the western Baltic Shield have been available, until now the findings of Soviet geologists on the eastern Baltic Shield have not been accessible. This workshop, co- organized by Dr. Richard Ojakangas of the University of Minnesota-Duluth and Dr. Sergey Rybakov of the Institute of Geology of the Karelian Branch of the Academy of Sciences of the U.S.S.R. in Petrozavodsk, will provide an opportunity for American and Soviet experts to exchange ideas and to evaluate and develop plans for long-term cooperation in this area. The workshop will also involve geological field trips in Minnesota, Michigan, Wisconsin, and adjacent Canada. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.